Studying Quantum Chromodynamics at LHCb

The protons and neutrons in the atomic nuclei of everyday matter are made of subnuclear particles called quarks and gluons. The project supported by this award will study how quarks and gluons scattered out of a proton or produced in high-energy particle collisions subsequently form new bound states. Additional measurements will investigate how strong nuclear charge, called color, flows through proton-proton scattering processes, searching for a theoretically predicted novel state of quarks and gluons that exhibit quantum correlations across colliding protons. Data from the Large Hadron Collider at the European Organization for Nuclear Research (CERN) will be used to perform the research, as part of the Large Hadron Collider Beauty (LHCb) experiment. The research performed will advance our understanding of how strong force bound states such as protons can be created, and the dynamics of their possible interactions. The project supported by this award will furthermore train early career scientists from diverse backgrounds in nuclear physics. Training the next generation of nuclear physicists is critical to maintain expertise relevant to the nation's energy and defense needs and to continue advancing both applied and non-applied research in nuclear physics and technology. Specifically, this award will enable mentored research in nuclear physics on the LHCb experiment by a woman postdoctoral scholar and four Ph.D. students, two women and two men, of which one is Latina American and another African American. In the third year of the award, a student from Mount Holyoke College, an undergraduate institution for women, will have the opportunity to perform summer research in nuclear physics at the University of Michigan.

The PI’s group will study how high-energy color-charged quarks hadronize into sprays of observable color-neutral bound states by performing a suite of complementary measurements at LHCb. Specifically, the measurements will compare charged hadron distributions in jets initiated predominantly by light versus heavy quarks; examine evidence for contributions from string breaking versus quark recombination models of hadronization via measurements of baryon versus meson production as a function of event multiplicity; and study spin-momentum correlations in hadronization by measurement of spontaneous polarization of produced hyperons. The proposed hadronization program will contribute toward the ultimate, long-term goal of being able to predict statistically the fully correlated distributions of particles from different flavor high-energy fragmenting quarks. Separate measurements will explore the role of color flow in hadronic scattering processes by searching for experimental evidence of transverse-momentum-dependent factorization breaking and color entanglement. The specific observables include correlated production of nearly back-to-back Z boson-hadron, hadron-hadron, and Z boson-jet pairs. The activities furthermore include contributions to the installation, commissioning, and maintenance of the U.S.-led Upstream Tracker silicon detector upgrade for LHCb.